Collaborative Research: Rates of Processes in the Mid-to Deep Crust of Arcs: A Case Study from the Cretaceous Cascades Arc

9980662 Miller
9980623 Bowring

The determination of the rates of geologic processes is fundamental to earth history, yet precise quantification of rates in many geologic settings has been very difficult to achieve. Partly due to greatly improved analytical precision, rates of magma chamber construction, strain rates during emplacement and rates of heating and cooling of plutons and wall rocks can be approached. This project will focus on the well-exposed crystalline core of the North Cascades to constrain the time scales and rates of pluton emplacement, deformation and exhumation and will involve an extensive, high-precision age dating program. Results should illuminate several important temporal and spatial variations in magmatic and deformational processes in deep levels of continental magmatic arcs.